Increasing the Number of STEM Graduates (INSG)

The Increasing the Number of Stem Graduates program at Grambling State University is awarding scholarships to students pursuing chemistry, biology, mathematics, computer science, engineering technology, and physics degrees who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from underrepresented groups. Scholars are being organized into cohorts, which are being supported by activities such as a summer bridge program, peer mentor, study sessions, and a concentrated effort to introduce and encourage undergraduate research. This project is making an impact in STEM undergraduate education in the region.